The volume and Chern-Simons invariant in topology and number theory.

By Mostow rigidity, the volume and Chern-Simons invariant of a hyperbolic 3-manifold are topological invariants. They are often regarded as the real and imaginary part of a complex valued invariant known as the complex volume. The complex volume can be defined more generally as an invariant of a parabolic representation of a 3-manifold group into a simple complex Lie group, e.g. SL(n,C). The PI and his collaborators will study such representations and extend several results previously only known for SL(2,C). In particular, we will give a concrete formula for the complex volume. The new idea is that a parabolic representation has a fundamental class in Neumann's extended Bloch group. By a result of the PI, the extended Bloch group can be defined over a number field, and is isomorphic to an algebraic K-group. This may shed new light on the role of the complex volume in number theory.

The volume and Chern-Simons invariant are interesting and important invariants that appear in a wide range of areas of mathematics including mathematical physics, hyperbolic geometry and number theory. The proposal introduces new techniques for computing these invariants via an object known as the extended Bloch group. The extended Bloch group is isomorphic to a group appearing in a different branch of mathematics known as algebraic K-theory. The relationship with K-theory may lead to an improved understanding of the role of the volume and Chern-Simons invariant in number theory, which has so far been completely mysterious.